Electronic Commerce Software Laboratory

Computer Science (31)
This project is creating a set of laboratory exercises that support student understanding of robust software systems design for modern electronic commerce applications. Lecture and lab are closely synchronized so that technical topics, strategies, and case studies presented in lecture are immediately reinforced by an implementation experience in the laboratory. Lab exercises include protocol performance, cryptography, authentication, electronic transactions, and steaming multimedia using technologies such as Java, ASP, Perl, XML and MySQL.

There is particular emphasis on the planning and evaluation process to ensure that the materials are those most necessary and sufficient for student understanding of electronic commerce.